IRES-US-Mexico Collaborative Effort on Nano Technology Education and Research (CENTER)

This award provides travel and participant support for seven U.S. undergraduate students per year for 3 years, to undertake a 3-month research program in carbon nanotube technology at the Instituto Potosino de Investigacion Cientifica y Tecnologica (IPICYT) in Mexico.

Students will choose from among eight projects at the forefront of nanotube research, and will work with the U.S. investigators, Drs. Pulickel Ajayan and Enrique Barrera of Rice University, highly recognized investigators in this field and with well-established Mexican investigator Dr. Mauricio Terrones at IPICYT. The young researchers will be exposed to state-of the-art facilities in an international setting. Students will be mentored while at the facility, and will publish and present their work. Additionally, web-based communication will be on-going after the international experience to foster a continuing relationship between the students and their mentors.

The project activities will advance nanoscience discovery and understanding while promoting teaching, training and learning and establishing strong ties between the U.S. and Mexico in nanoscience research.